Dating Sediments from the Pacific Pelagic Clay Province: An Evaluation of the Preservation of Seawater Sr Isotopes in Fish Teeth

9504536 Jones This project will attempt to refine the use of Sr isotopes in fossil fish teeth for precise age control of otherwise- undatable sediments. Two questions will be addressed, one dealing with the best cleaning method for removal of all coatings and the second examining evidence for alteration (diagenesis) of the teeth themselves. ***